Mathematical Sciences: Partial Differential Equations in Riemannian and CR Geometry

9404107 Lee The plan of research covers a number of topics characterizing classes of Einstein metrics in Riemannian Geometry and local embeddability of pseudoconvex CR-manifolds. This component of the research may have potential applications to relativity theory. It is also proposed to develop the Ricci software package to implement coordinate-free tensor calculations which would be a valuable tool for research in Riemannian geometry and which is likely to have educational ramifications. ***